Diagenesis of Sandstones in Foreland and Piggy-back Basins, Northern Apennines

The northern Apennines, Italy, have excellent exposures of these two types of basins in close proximity and is the type area of piggy-back basins. Rock type and geometry; distribution of cements and pores with respect to bedding planes, faults, and shales; sandstone/shale ratio; and burial and tectonic history are major features that will be compared. Diagenetic features will be studied using polarized light, scanning electron microscopy, cathodoluminescence, electron probe microanalysis, fluid inclusions, stable isotope geochemistry, heavy mineral composition, vitrinite reflectance, apatite fission-track data in addition to outcrop relations. The purpose of this project is to compare and contrast cementation and other diagenetic aspects of age-equivalent sandstones from two different types of sedimentary basins, piggy- back and foreland, in order to isolate causes and effects and to identify the relative importance of the many variables controlling diagenesis. Understanding sandstone diagenesis in sedimentary basins has an important applied use in assessing hydrocarbon and water reservoir quality of sandstones and in assessing the role of rock-water interactions in sandstones used for toxic waste disposal. Understanding diagenesis in sandstones also is essential to interpreting the post-depositional history of sandstones, the sources and sinks of chemical components, and interpreting the provenance of sandstones. This is a cooperative study involving four Italian sedimentary geologists (Universities of Modena and Bologna) and four sedimentary geologists from the University of Texas at Austin. The reasons for doing the study in the northern Apennines are: 1) there are excellent exposures of coeval rocks deposited in two different types of basins in a small geographic area (200 x 150 km), 2) the stratigraphy and sedimentology of the rocks and structural history are known, and 3) opportunity for international cooperation on a project for which the Italian team has obtained support.